Research Initiation: Restricted Diffusion and Partitioning of Macromolecules in Assemblages of Spheres

The phenomena of restricted diffusion and partitioning of large molecules in assemblages of spheres is studied. Past investigations have used porous media which contain only cylindrical pores. However, porous media of interest to many engineering applications is better represented as assemblages of uniform spheres. Uniform silica spheres with diameters of 40 to 200 nm have been fabricated. Further, spheres have been compacted at four pressures, resulting in pellets with a mean pore size ranging from 8 to 96 nm. Due to the sphere uniformity and the known surface chemistry of silica, these pellets are ideal porous media models. Diffusion coefficients for a number of macromolecules in several solvents are measured in the project using pellets of varying porosity/sphere size. Since the observed partitioning effect is due to both size exclusion and adsorption, adsorption measurements on uncompacted spheres are made. This allows the 'backing out' of the relationship between the molecule/pore size ratio and the partition coefficient. This is compared to a partitioning theory that is developed and past experimental and theoretical expressions arising from work with cylindrical pores.